Expansion of MBE Machine to Include Dopants and Acquisition of Dopant Characterization Equipment

This grant provides accessories that expand the capabilities of a just-delivered Riber 32 MBE machine and to purchase materials-characterization instrumentation. The machine expansion consists of two parts: a thermal treatment unit, resulting in higher purity and higher throughput growth; and effusions cells, power supplies, and controllers to permit dopants to be added. The materials-characterization instruments will be used to study quantitatively the relationship between the presence of dopants and the electrical and optical properties of the MBE-grown materials; to quantify overall crystal quality, to identify dopant and carrier concentration and mobility; and to give carrier type and concentration as a function of materials depth. These instruments will expand our capability to study the basic electronic and nonlinear optical properties of materials, and to fabricate and test all-optical (nonlinear optical) and electro-optic devices for photonics.